The Monticello Electronic Library: A Virtual Research Library for the Southeast-Workshop

9319348 Ricart The Southeastern Universities Research Association (SURA) proposes to create the first, real, regional electronic library in America. The Monticello Electronic Library, as the SURA project is named, will use complementary collection strategies for electronic materials among participating SURA libraries and SURAnet electronic document collection many times larger than any single institution, even Harvard, could support. Through the services of a group of experts in the SURA region, and drawing on expertise from others to give a critical national perspective, a set of proposals is being generated, discussed and evaluated that will form the basis for the Monticello Electronic Library. A meeting of the group of experts together with other representatives from SURA institutions, SOLINET, and SURAnet will be held so that advocates for each proposal will give presentations to this larger audience and discussion will follow. It is expected that through this planning process, an exciting but realistic set of proposals will emerge. These proposals will be incorporated into a report that outlines the Monticello Library. ***